GEM: Coordination for the Geospace Environment Modeling Workshops

This project will provide for the coordination of the NSF Geospace Environment Modeling (GEM) Workshops. The GEM workshops comprise a 5 day-long workshop each summer and a half-day mini-workshop in conjunction with each Fall American Geophysical Union (AGU) meeting. The next summer workshop will be held in June 2004 in Snowmass, Colorado and the following year a joint workshop with the Coupling, Energetics and Dynamics of Atmospheric Regions (CEDAR) program will be held in Santa Fe, NM. The funding for this project will support all facets of the workshop coordination including: facility planning, meeting logistics, room and audio-visual rental, student and postdoc travel support, and some associated administrative support. The goal of the workshop coordination is to provide organized forums to foster the community-wide discussions and research needed to achieve the GEM program goals.